Expedited Award for Novel Research: New Laser-Based Method for Manufacturing High Temperature Superconducting Films

This project deals with a manufacturing technique for depositing thin films of high-temperature superconducting ceramic materials of the type yttrium-barium-copper-oxygen compound. Deposition of the film will be done in a high-vacuum system. Elemental targets of the superconducting material will be sequentally evaporated from a rotating target holder using an Excimer laser. The composition of the deposited film will be monitored and controlled in situ using a quartz resonator microbalance and a computer control. Thin films of superconducting materials have applications in the electronic and computer applications.